Many-Body Methods in Nuclear Structure and Related Fields

The central theme of this proposal is the development of
new methods for approximately solving the Schroedinger
equation for atomic nuclei and their application to problems of
contemporary importance in nuclear structure physics. Methods
having their parentage in the nuclear shell model and in
mean-field theory will be considered, with the goal of developing
algorithms that significantly expand their ranges of applicability.

A principal focus will be on the development of the
Density Matrix Renormalization Group (DMRG), a method
first introduced in the context of quantum spin lattices.
Here we will focus on a new DMRG methodology that is tailored
to such finite fermi systems as the atomic nucleus. We will also
consider its application to an important non-nuclear problem, the
two-dimensional Hubbard model, which is of relevance to systems
that undergo transitions to superconductivity at high critical
temperatures.

A second focus will be on the properties of
weakly-bound nuclei far from stability. A method recently
proposed for reliably solving the Hartree Fock Bogolyubov
mean-field equations for very weakly-bound nuclei will be
developed further, so as to make it computationally more viable,
and will then be applied systematically to both spherical and
axially-deformed nuclei throughout the periodic table. Other
methods for solving the Hartree Fock Bogolyubov equations in
weakly-bound systems will also be considered, to make sure
that the spatial properties of such systems are being reliably
treated.